Mathematical Sciences: Homotopy Theory and Its Applications

Professor Mitchell plans to investigate the implications for algebraic K-theory of recent developments in homotopy theory. In particular, he plans to study aspects of algebraic K-theory connected with the Lichtenbaum-Quillen conjectures from the point of view of higher periodicity in homotopy theory, using the spectacular work of Devinatz, Hopkins and Smith; the point being that by work of Thomason there shouldn't be any higher periodicity in algebraic K-theory. In a related project he plans to study periodic self-maps of finite complexes, the problem of realizing subalgebras of the Steenrod algebra geometrically, and stable splittings obtained from the modular representation theory of symmetric groups. These investigations will help to integrate two of the major algebraic machines for investigating geometric spaces, namely homotopy theory, which has been advancing particularly rapidly in recent years, and algebraic K-theory, also the scene of intense current exploration.